Opportunities for STEM Success at Mercy College

This project is awarding scholarships and providing comprehensive support services to academically talented but financially needy students. Scholarships are supporting a total of 29 scholars for up to five years while the scholars earn bachelor's degrees in Mathematics, Computer Information Systems, Computer Science, or Information Assurance and Security. Support structures for participants include the institution's personalized achievement compact, which provides each student with a personal mentor who will advises students on academics, college life, and career paths. Additional support includes mentoring by faculty, field trips to local industries, a seminar series, and internship opportunities. The institution boasts an ethnically diverse student body, and many of its students are among the first generation in their families to attend college. The goal of the program is to increase the number of students from underrepresented groups who complete a baccalaureate degree program in computer information science or mathematics.